Planning Project for Center for Direct Involvement with Primary Research and Social Responsibility

This planning grant will lead to a proposal from a coalition of four school districts in western Connecticut. The full grant would establish a center entitled the Center for Direct Involvement with Primary Research and Social Responsibility (DIPR/SR). This center would focus on inquiry and laboratory based activities and issues shared by science, technology and society. The planning grant will establish the planning committee, devise an administrative plan and a program of activities for the center, develop a proposal for the NSF, and evaluate the planning process. The grantee provided matching costs of 100%.